Mathematics of Anisotropic Electrical and Dielectric Properties of Nanocomposites

Zheng
DMS-08-7954

The investigator studies two important areas in
nanocomposites: (1) homogenized effective dielectric constant of
nanocomposites; and (2) percolation-dominated electrical
conductivity of nanocomposites. This project is focused on
anisotropic systems with orientationally ordered nanoparticles,
and is based on an accurate description of the nanoparticle
orientational probability distribution function from
flow-processing databases, which we then map to effective
properties through volume averaging and percolation phenomena.
In the first part, the effective dielectric tensor is considered
in two explicit systems of current interests: high dielectric
constant nanoparticles dispersed in polymers, and conducting
nanoparticles dispersed in polymers. Both systems are observed
to lead to enhanced effective dielectric properties. This
requires careful preparation, because the properties are
extremely sensitive to details of composition and processing. In
the second part, key aspects of salient electric properties are
considered, such as percolation threshold modification by
mechanical loading, multiscale homogenization method, and a
molecular-scale electron hopping model. Numerical and
mathematical homogenization and non-equilibrium percolation
techniques need to be developed to address these challenges. The
proposed projects modify, apply, test, and extend existing
mathematical theory and numerical approaches for two-phase (or
three phase, if interphase is considered) composites, where the
number of particles and new surface area simply overwhelm
existing tools.

The aspirations for extreme property enhancements through
designer nanoparticles mixed into traditional materials are based
on prototype experiments. However, there are new challenges
unique to nanocomposites for which there are no predictive
mathematical or computational tools. This project is a response
to these needs, through a coordinated combination of mathematical
analysis and scientific computation, ranging in scale from
individual particles to bulk properties. Today, limitations
imposed by particle numbers only allow low moments of the
nanoparticle distributions to be measured, and the inherent
material sensitivity to the details of the distribution observed
in experiments is unknown. This project gives insight into the
mechanism underlying extreme property gains, and thus provides
key input into design and control strategies.